STANFORD INSTITUTE FOR THEORETICAL ECONOMICS SUMMER WORKSHOP

This award provides partial support for the Stanford Institute for Theoretical Economics (SITE) Summer Workshops. This is a conference series; 10 different 2 to 3 day meetings are held each summer. An open call for papers means that researchers from around the United States present their early stage research for feedback. SITE encourages and supports the participation of younger researchers as well as senior researchers from a wide range of academic and non-academic institutions. Attendance is open to the public as well. Workshop topics include Banks and Financial Frictions, Economics of Occupational Licensing, Empirical Implementation of Theoretical Models of Strategic Interaction and Dynamic Behavior, Dynamic Games, Contracts, and Markets, Experimental Economics, Psychology and Economics, Asset Pricing Theory and Computation, the Macroeconomics of Uncertainty and Volatility, the Microeconomics and Macroeconomics of Labor Markets, Global Income Dynamics, Financial Regulation, the Dollar’s Special Status, Migration, and Macroeconomics and Inequality.